Engineering Research Equipment Grant: Equipment for Measuring Ground Vibrations

This action is for the support of equipment to be used on the following research projects: (1) The analysis and development of laboratory apparatus for measuring the dynamic properties of soil; (2) Calibration of laboratory and field vibration measuring transducers; (3) Determination of soil/structure interaction behavior for both models and prototype, due to dynamic excitation such as earthquakes; (4) Spectral analysis of surface wave measurements in-situ; (5) Measurement of wave propagation velocities in the laboratory and in the field. The equipment includes a real time spectrum analyzer with switching, mass storage, and graphics output capabilities; as well as transducers and cables for making accurate vibration measurements in the laboratory, on soil pavement surfaces, or in boreholes. It has the capability of making very accurate measurements of soil and structural vibrations and performing mathematical operations on them. The equipment is portable and can be used in the field as well as in the laboratory.